Next Generation Software: TMO Based Modeling and Design of Reliable Next-Generation Complex Software

EIA-9975053
Kane Kim
University of California-Irvine

Next Generation Software: TMO Based modeling and Design of Reliable Next-Generation Complex Software.

The Time-triggered Message-triggered Object (TMO) structuring scheme that has been formulated by the PI's in recent years is intended to facilitate component based real-time distributed software engineering in a form which software engineers in the vast business software field can adapt to, with small efforts. It is a syntactically simple and natural extension, but semantically powerful extension of the conventional object structuring approaches.

In the proposed research, the PI's intend to render the TMO-based RT distributed computing application software engineering methodology in a more versatile form and validate the effectiveness of the methodology in real application environments, via a systematic university-industry collaborative experimental study.

Among the milestones in the project include establishing:
Formalized TMO-structured modeling techniques for hierarchical multi-level specification, design and analysis of complex distributed systems
C++ and Java based tools for TMO-structured RT and distributed programming and expression of high level abstractions
Middleware models of commercial level RT OS systems
Techniques and tools for analysis and timeliness-guarantees of TMO component based software systems
Techniques for dynamic optimization of mobile software components
Techniques and tools for visualization of real-time simulations
Demonstration and validation of all the techniques and tools developed in the project.